REU Site: Research Experiences for Undergraduates at the Pittsburgh Supercomputing Center

This award to the Pittsburgh Supercomputing Center (PSC) proposes a program which combines formal training in the efficient use of supercomputers with extended work on a research computing project to prepare undergraduates for a research career which includes significant amounts of computation. The Pittsburgh Supercomputing Center is one of the five NSF/DASC supercomputer centers. The program will provide research experience for undergraduates on an interactive basis with the research scientists at the center. This will familiarize and educate the students in a wide variety of computer hardware and software. Program recommends support in the amount of $40,000.//